Collaborative Research: Sensitivity of the West Antarctic Ice Sheet to 2º Celsius (SWAIS 2C)

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). The West Antarctic Ice Sheet (WAIS) presently holds approximately five meters of global sea-level equivalent. Information from satellites demonstrates that the West Antarctic Ice Sheet is losing ice faster than any other region in the Antarctic. The Sensitivity of the West Antarctic Ice Sheet to 2⁰ Celsius (SWAIS 2C) Project was developed through international collaboration to better forecast the size and timing of future loss of WAIS. The SWAIS 2C Project scientists will collect and study geological (rocks), glaciological (ice), and geophysical (Earth physical properties) data to better inform ice sheet numerical models. The project aims to interpret the state of past environmental conditions in West Antarctica (warm open marine seas, cold ice-covered ocean, or polar grounded ice sheet) during recent periods in Earth’s history. These types of geological studies will help us understand how much ice melted during past warm periods, what processes are involved, and the rates of these processes. Glaciological and geophysical information collected by scientists will help us better understand the modern processes that dominate ice-sheet dynamics. Modeling studies will use this new information regarding past and present ice sheet behavior to make better predictions of how much and how fast the West Antarctic Ice Sheet will melt in the future. This project will support a United States scientific team with a range of scientific expertise, with a key goal of broadening the involvement of early career scientists in Antarctic research. Informative and impactful education and outreach materials will be developed and shared with educators to bring polar science into the classroom and provide information related to ice sheet stability and sea level rise to students and the public.

Satellite observations show that the WAIS is losing mass faster than other Antarctic regions. WAIS is considered highly sensitive to future warming because much of it is grounded 2500 m below sea level and its associated floating ice shelves are exposed to warming ocean waters. Antarctic ice sheet dynamics remain the largest uncertainty in numerical model projections of future sea level rise. Existing datasets lack direct physical evidence of the WAIS response to past times when global mean temperatures were 2 degrees C warmer than during pre-industrial time. The four-year SWAIS 2C Project has been developed through international collaboration to integrate geological, glaciological, and geophysical data with ice sheet modeling studies to better project future scenarios of WAIS contribution to sea level rise. This approach will aim to integrate studies of past (using geological records) and present (using glaciology and geophysical records) ice sheet behavior to inform future projections (using models) of WAIS ice-sheet dynamics. This project will recover two ~200 m-long sediment cores from beneath the WAIS using new drilling technology in strategic locations adjacent to the grounding zone at Kamb Ice Stream and at Crary Ice Rise in the inner Ross Embayment along the Siple Coast. Three SWAIS 2C approaches will determine conditions associated with past WAIS collapses and will sharpen our predictive tools to assess its future stability: (1) stratigraphic records will provide new paleoenvironmental information regarding past sensitivities to system boundaries, processes, and the rates of these processes; (2) modern observations will provide details of the variables and complexities associated with processes and the rates of these processes; and (3) numerical model application and development will assess future scenarios to equilibrium states in accelerated time, and test system sensitivities and feedbacks. SWAIS 2C Project results will contribute new information from the southern end (most proximal to the ice grounding zone) of a transect that extends north to recent drill holes in the outer Ross Embayment to connect with distal Southern Ocean records. The SWAIS 2C Project is complementary to the US-UK Thwaites Glacier Project on the other side of West Antarctica, allowing for a broader understanding of WAIS history and better predictions of future ice-sheet dynamics.